1993 Gordon Research Conference on Nuclear Chemistry

This grant provides partial support for the 1993 Nuclear Chemistry Gordon Research Conference, to be held at New London, New Hampshire, 5-9 July. This year the conference will deal with topics in Nuclear Structure where new large detector arrays and recent advances in radioactive beam techniques have provided new interesting data and corresponding increases in theoretical activity.